Transient Modeling and Analysis of MHD Plants

Magnetohydrodynamic electric generators are a possible answer to the energy needs of the future. This research project will provide a model and a computer code for the operating characteristics of an MHD power plant. The interaction of the MHD plant with an electrical network will be analyzed.